SHF: Small: High Performance On-Chip Interconnects Design for Multicore Accelerators

Advances in technology have made it possible to accommodate an increasing number of
transistors on a die, enabling Multicore Accelerators like Graphics Processing Units
(GPUs) by integrating diverse components on a single chip. GPUs have recently gained
attention as a cost-effective approach for data parallel architectures, and the fast scaling of
the GPUs increases the importance of designing an ideal on-chip interconnection network,
which significantly impacts the overall system performance.
In this project, we propose to develop a framework for high-performance and
energy-efficient on-chip network mechanisms in synergy with Multicore Accelerator
architectures. The desirable properties of a target on-chip network include re-usability
across a wide range of Multicore Accelerator architectures, maximization of the use of
routing resources, and support for reliable and energy-efficient data transfer.
This project will make significant advances in understanding the interplay between
Multicore Accelerator and Network-on-Chip (NoC) architectures, which leads us to
scalable solutions for performance, area and energy.

While the major communication of Chip Multiprocessor (CMP) systems is core-to-core
for shared caches, major traffic of Multicore Accelerators is core-to-memory, which
makes the memory controllers hot spots. Since Multicore Accelerators execute many
threads in order to hide memory latency, it is critical for the underlying NoC to provide high bandwidth.
The key contributions expected from the project are: (1) building a
simulation testbed and analyzing the behavior of on-chip traffic workloads in Multicore
Accelerators; (2) proposing mechanisms for a high-performance and energy-efficient
NoC by utilizing emerging memory and NoC technologies in addition to novel topologies
and routing mechanisms; (3) developing methodologies at the NoC level that will
support data prefetching mechanisms in the Multicore Accelerators; and (4) providing
multicast support and packet coalescing in the on-chip network to guarantee better
system throughput. The results from this project are likely to foster new research directions in several
areas of Computer Architecture and Parallel Computing. Also, high-performance and
energy-aware computing and communication research is applicable to other areas,
such as Embedded Systems and Cloud Computing. We will develop web-based tutorials to
present and disseminate the results of this project, including tools and techniques, to a broad audience.